Development of A New Interlocking Block Unit To Improve The Earthquake Resistance of Masonry Construction

This project will investigate the feasibility of an interlocking concrete block to resist extreme winds, earthquakes and/or impacts. The investigation will make use of small scale models to simulate full size construction.